Three and Four-Manifolds

Proposal: DMS-9975171

PI: Robion Kirby

Abstract: This proposal concerns several problems in the smooth topology of four
dimensional manifolds. One is to find a topological definition of the
Seiberg-Witten invariants, perhaps by exploiting almost complex
structures on 4-manifolds which are "tight" in some sense other than
being symplectic. Second is to find a natural construction of a
4-manifold which has as boundary the connected sum of three copies
(with alternating orientations) of a given closed 3-manifold. Third
is (with Paul Melvin) to finish work on the handlebody structure of
certain complex elliptic surfaces.

Manifolds of dimension four are the least understood of all
dimensions, yet they occur frequently, for example, in relation to the
three spatial and one temporal dimensions of physical space-time. A
fundamental problem is to classify these manifolds, where classify
means to understand them in terms of relatively simple invariants
which can be computed. The Seiberg-Witten invariants which were
discovered in 1994 by mathematical physicists are the best current set
of invariants, and much work needs to be done in understanding and
extending them. One technique is handlebody theory which involves a
simple way of describing a manifold in terms of simple building
blocks.